SGER: Learning Syntax-based Evaluation Metrics for Machine Translation

Recent years have witnessed significant improvements in automatic
machine translation systems. An enabling factor for this short
turnaround time is the adoption of automatic evaluation metrics, which
serve to guide developers to improve translation systems. However,
current metrics are a coarse approximation of human judgments for
system outputs. This SGER project is exploring ways of improving
current metrics. It does so on three fronts. First, judgments of
syntactic similarities between system outputs and human references are
being incorporated into the metric in addition to phrasal
similarities. Second, machine learning techniques are being applied
to find characteristics that are correlated to human judgments of
quality. Third, the project is determining more fine-grained analyses
of what is wrong as well as what is right with system outputs based on
syntactic as well as lexical characteristics of the system outputs.
In developing a learnable, syntax-aware metric, discriminative methods
will be generalized for complex, structured problems. A more
informative automatic evaluation metric will lead to more rapid
improvements in machine translation technology, enabling access to
archives from centuries past and documents from around the world. All
relevant software and non-proprietary data will be distributed widely.
Written reports of experimental results and findings will be
disseminated through academic publications.